Presidential Faculty Fellow

9350405 Murnane Professor Murnane will use this Presidential Faculty Fellow award to study the action of ultrashort X-ray pulses on plasmas and condensed materials. The X-ray pulses will be produced with techniques she has developed in her laboratory in which femtosecond (10-15 sec) optical pulses are converted to the x-ray regime through plasma excitation. ***